RUI: Pulsar Studies of Refraction in the Interstellar Medium

9317605 Stinebring RUI: Pulsar Studies of Refraction in the Interstellar Medium. Dr. Stinebring's research consists of new and continuing studies of inhomogeneities in the instellar medium. In particular, he will study the clumpiness which gives rise to refractive effects such as long term fluctuations in pulsar intensities, organized patterns in dynamic spectra of pulsars, and long term variations in integrated electron content along the line of sight. This award is made under the auspices of the Research in Undergraduate Institutions program at the NSF. As such it will provide excellent research opportunities for undergraduates at Oberlin college.